Neurons and Neuronal Networks in the Motor System, at Herbrew University, Jersalem, Israel, March 14-25, 1993

This is a request for support for seven students and postdocs to attend the Bat Sheva Seminar on "Neurons and Neuronal Networks in the Motor System" at Hebrew University, Jerusalem, Israel, from March 14-15, 1993. The motor system controls the position of organisms and their movement in the external world by a complex assembly of neuronal networks. Intricate motor paradigms of movements and postural adjustments constitute almost all the behavioral patterns expressed in our daily life. Understanding of the motor system and its neural control mechanisms are therefore one of the most important aspects of modern neurobiology. This seminar is aimed at studying the motor system using an interdisciplinary research approach, starting from structural and functional aspects of single cells in the motor system, continuing with central neuronal networks, and ending with combined physiological and artificial intelligence studies. This approach will provide us better understanding of mechanisms involved in the execution of motor behavior. This seminar is an outstanding opportunity to facilitate advances in interdisciplinary training in basic neuroscience and motor control, and to bring together students and top-scientists from all over the world for a period of two weeks. Previous experience with Bat-Sheva seminars shows that it was very fruitful with good interactions among the participants and students, and this coming seminar seems to be more popular than the previous ones.***//